International Decade for the East Africa Lakes (IDEAL): Phase I

This award supports planning activities in preparation for high-resolution paleoclimate studies in the large lakes of the East African Rift Valley. This effort, entitled the International Decade for the East African Lakes (IDEAL), resulted from a workshop held in Bern, Switzerland in March 1990. The African rift valley lakes hold a record of climatic change in the tropics that is unparalleled anywhere in the world. It is resolvable on a time scale of years or decades and may be continuous back to 10-20 million years before present. The lakes respond dramatically to relatively minor changes in climate, leaving strong signals in sediment composition. Our ability to interpret these signals, however, is constrained by our limited knowledge about how the lakes respond to climate forcing. We know little about the biological, chemical physical dynamics of these lakes, or how they impact sediment composition. A comprehensive, multi-disciplinary study is proposed that will involve scientists from the North America, Europe and Africa.